Tulsa Public Schools Mathematics/Science Systemic Reform Initiative

9817614
STEWART

This project, sponsored by the Tulsa Public Schools, will carry out a planning project which will prepare the schools in the Tulsa Public School District to prepare a full proposal for a systemic change project. The project intends, among other things, to research models and best practices in K-12 mathematics and science education, study the integration of technology in the schools, visit on-going successful systemic sites and hold focused group meetings to garner support for school reform.